Studies of Neutron-Irradiated Fluid Inclusions by Laser- Microprobe, Noble-Gas Mass Spectrometry

This project is concerned with mineralized porphyry systems and mafic intrusions with particular emphasis on identifying "magmatic" fluids, fluid inclusions in high-grade metamorphic rocks, and fluid inclusions from ultramafic nodules, and 2) to study samples that have already been mapped and neutron- irradiated from Valles, New Mexico (dilute modern geothermal system). Hansonburg, New Mexico (Mississippi Valley-type Pb-Zn deposit), and Juneau, Alaska (gold-bearing quartz veins). The funds will be used primarily for support of a post doc.